Linear Partial Differential Equations on Singular Spaces

Proposal DMS-0401323
Title: Linear partial differential equations on singular spaces
P.I.: Jared Wunsch, Northwestern University

ABSTRACT

The PI will study differential operators on manifolds with singular metric
structures. One project focuses on the wave equation on singular spaces;
together with Melrose, the PI has shown that in general, a singularity of
a solution to the wave equation interacts with a cone point to produce a
"diffracted" spherical wavefront emanating from the cone point. The
singularity of the diffracted front may be weaker than that of the
incident front if the latter is not too precisely focused on the cone
point. Melrose and the PI hope to generalize these results to more
complex singular geometries, perhaps eventually to include a large class
of stratified spaces. Another direction of research involves the
Schroedinger equation on noncompact manifold endowed with "scattering"
metrics (e.g. short-range perturbations of Euclidean spaces). Together
with Hassell and Tao, the PI is involved in a project to prove sharp
Strichartz estimates for the Schroedinger equation in this geometric
setting. Hassell and the PI also hope to provide a precise description of
the propagator for the Schroedinger equation, extending an earlier result
which yielded part of its Schwartz kernel.

A central question in the mathematical theory of quantum mechanics is:
what is the relationship between the classical dynamics of a particle and
its corresponding quantum states? Insights into this problem have come
not only from the direct study of the quantum mechanical energy operator
or "Hamiltonian" itself, but also from studying a host of other
fundamental equations involving it, such as the heat equation, the wave
equation, and, naturally, the time-dependent Schroedinger equation. The
focus of the PI's research is thus the geometric analysis of several kinds
of partial differential equations. One project investigates what happens
to waves as they interact with (a certain generalization of) sharp
corners---the geometry of how wavefronts move can be quite subtle in these
cases owing to the effects of diffraction. Another project is to study
the structure of solutions of the Schroedinger equation on unbounded
spaces; such solutions describe the time-evolution of a quantum particle.
A related focus of research is to obtain certain estimates of solutions to
the Schroedinger equation in order to improve our understanding the
nonlinear Schroedinger equation, which arises in nonlinear optics and the
theory of Bose-Einstein condensates, among other physical applications.